Doctoral Dissertation Research in Decision, Risk, and Management Science

This award for doctoral dissertation research in decision, risk, and management science will suppoprt research costs for work on the dissertation, "Finding Risk Capital for Entrepreneurs: An Examination of the Effects of Complexity-Reducing Information on Investor Patterns." The purpose of this study is to compare how venture capital firms and private, individual investors, manage risks associated with providing capital to new ventures. It addresses the question of why these two types of venture capitalists exist simultaneously in ventures. It suggests that the basis for their simultaneous existence is likely to be that they each have comparative advantages in risk management. This study draws upon previous work showing that venture capital firms and individual investors rely upon separate networks for information regarding how to control risk. Mail questionnaires, face-to-face interviews, and telephone interviews will be used to gather information on the two prominent segments of the venture capital market. Covariance structure modeling will be used to examine and test the relationships between the perception of risk type and the implementation of controls to manage risk. A practical implementation of this study is that it can be helpful in assisting entrepreneurs locate risk capital, by helping them know how their projects' riskiness is viewed by potential investors.